Knot and 3-manifold invariants and Dehn surgery

The PI proposes to explore the applicability of classical 3-dimensional
topology techniques in the study of the ``finite type" invariants of
knots and 3-manifolds. She would like to investigate the relation
between intrinsic invariants (e.g. knot genus, satellite structures)
of knots that cannot be distinguished by their finite type invariants.
For this she proposes to use the general machinery that has been developed
over the years to understand how the topology of 3-manifolds changes under
surgery. The resulting work will shed some light on how the finite type
knot invariants relate to the topology of the knot complement and could
lead to progress on the open question of whether these invariants
distinguish all knots. She would also like to search for relations between
the Jones polynomial of knots and the fundamental group of the 3-manifolds
obtained by Dehn surgery on knots.

The research of the project lies in the area of 3-dimensional topology the
central objects of study of which are spaces called 3-manifolds. A
3-manifold is an object that locally looks like the ordinary 3-dimensional
space but whose global structure can be complicated. A main goal of
3-dimensional topology is to understand these structures and achieve a
classification of 3-manifolds. An important part of 3-dimensional topology
is also the study of knots (loops embedded in some tangled way in
3-manifolds) and their classification. One of the ways that topologists have
been approaching these problems is through the use of ``invariants". In the
recent years, ideas originated in physics, lead mathematicians to the
discovery of a variety of invariants of knots and 3-manifolds. The central
theme of the PI's project is to understand the properties of these
invariants, using ideas from traditional 3-dimensional topology and from
physics, and investigate the extent to which they distinguish
knots and 3-manifolds.